The Cognitive Skills of Tutoring in Algebra

The research literature contains few documented reports on the strategies and tactics used by teachers in one-to-one tutoring situations and the learning effects related to same. This paucity of information exist even as vast amounts of educational research is being focused on effective classroom teaching. The goal of the research proposed here is to develop a cognitive skills- model of one-to-one tutoring in algebra. The Model will explicate specific tutoring strategies and tactics at a more precise level of detail than is currently available. This problem will be approached from an "expert systems" point of view where the target expert is a master high school algebra tutor. This teacher will be videotaped and the tapes analyzed to determine the cognitive skills involved in the teacher-student interaction. The cognitive skills discovered will be represented as formal knowledge structures, and then, as far as possible, implemented in the pedagogical module of an intelligent tutor for algebra. The development plan involves the initial observation of the expert teacher, viewing of the videotapes and both debriefing and followup interviews with the expert teacher, model validation by both the expert tutoring system with students in school settings. Input from mathematicians, mathematics educators, and teacher educators will help guide the development of the expert tutoring system. The proposed research is challenging and has the potential of expanding the frontiers of mathematics education. It has been carefully designed to move beyond routine "symbol manipulation" tutors. The Principal Investigator is highly respected and the list of associated staff and consultants are the top scholars in their respective academic fields. The reviewers were enthusiastic about the project and recommended funding. The project is planned for a period of twenty-four (24) months.